Doctoral Dissertation Research: Television News and Attributions of Responsibility

9310043 Peffley An important prerequisite of democratic government is that citizens have the opportunity to hold elected officials accountable for their actions. In order for such opportunities to be effective, however, citizens must base judgments of political responsibility on accessible and relevant information provided by the mass media. Since most citizens rely heavily on television for such information, a growing body of research in political science has begun to investigate the way the network news broadcasts often prevent citizens from making the most meaningful assessments of political responsibility. Past research, however, has not examined the importance of visual stimuli in affecting citizens' judgments of who is responsible for various national problems. This is unfortunate given that television is primarily a visual medium where important political information is presented through visual, as opposed to textual or auditory, channels. This doctoral dissertation research investigation represents one of the first systematic investigations of the importance of visual images on citizens assessments of political responsibility conducted in political science. In addition, while prior studies have focused extensively upon assessments between individual and societal responsibility, this research will investigate the influence that the media has upon citizens' evaluations of the president, and, to this date, no such studies have been conducted concerning Congress and congressional incumbents. Consequently, this investigation will also investigate how coverage from the network news media influences viewers' evaluations of the institutions of the Presidency and Congress as well as the respective incumbents. Specifically, the researcher conducts a content analysis of network news coverage of important political issues as well as a series of experiments intended to fill in these gaps left by prior research. ***